Use of Holographic Interferometry in Mass Transfer Measurement

Measurements of convective heat transfer are often very difficult to make. In certain situations, it is easier to measure the rate of mass transfer and then to convert the results to heat transfer by using the analogy between the two processes. One of the most oft-used mass transfer techniques is the sublimation of naphthalene. In the past, the degree of sublimation has been measured by using a stylus-type instrument to measure the contour of the subliming surface. The present proposal is directed toward the investigation of the use of optical techniques, specifically holographic interferometry, to measure the surface contour. If successful, greater accuracy will result and, even of greater importance, surface shapes will be able to be dealt with which were beyond the capabilities of stylus-type instruments.